Peracids as Replacements for Chlorine-Containing Compounds in the Bleaching of Wood Pulps

Dr. Raymond C. Francis, SUNY College of Environmental Science and Engineering - Syracuse, is supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program of the Chemistry Division under the Environmentally Benign Synthesis and Processing Initiative for an evaluation of peracids as replacements for chlorine containing compounds in the bleaching of wood. Major efforts will be directed at evaluating the metal catalyzed decomposition of caroates and peracetic acid, the oxidation of lignin models and cellulose with caroates and peracetic acid, and finally the oxidation of actual kraft pulp. A combination of these results will permit the optimal conditions to be designed for the use of caroates and peracetic acid as replacements of chlorine containing bleaches by the paper industry. The peracetic acid research will use potentially hazardous, highly concentrated peracetic acid. These experiments will be conducted in the Houston laboratories of the industrial collaborator, Solvay Interox. Wood pulps are usually bleached during paper manufacturing with chlorine containing compounds. The reaction between these bleaches and lignins produces organochlorine compounds which are believed to be harmful to the environment. The peracids are strong oxidants which also can oxidize lignins. However, they do not generate chlorine containing organics and their effluents can be recycled, concentrated, and disposed of in environmentally sound ways. As the use of peracids in wood pulp processing is a relatively new concept and this project involves a comprehensive investigation of both the relevant organic and inorganic chemistry. The results will assist the paper industry to determine the optimal conditions under which peracids should be used.